Longitudual Comparison Study of Long-term Effects of Active and Investigative Learning in Introductory Biology

The research focus of this proposal is the impact of innovative and widely
advocated methods of teaching introductory biology on a broad sample of
UMBC undergraduates. A 2X2 longitudinal study is proposed to examine
whether early exposure to student-centered, active-learning classes and
investigative laboratories in introductory biology makes a difference over
multiple years with respect to students' achievement, attrition, and
attitudes and beliefs toward and about the nature of science. Students who
register for class and laboratory sections (class and lab are separate
courses) experience one of four pairings of lecture and lab (for example,
traditional lecture/investigative lab, active-learning lecture/tradtional
lab, etc.). The question is whether long-term outcomes differ
significantly depending on which class/laboratory combination students
experience.